Pervasive Information Community Organization (PICO): A Framework for Internet Services of the Future

Pervasive Information Communities Organization (PICO) is a framework to
create mission-oriented dynamic communities of software agents that perform tasks
on behalf of users and devices. PICO provides automated continual services to
improve quality of life, and to utilize resources efficiently by enhancing
existing Internet services. PICO enabled Internet will be used effectively
in many dynamically changing time-critical applications that demand
proactive real-time collaborations among physical devices, software agents,
and personnel in heterogeneous environments.

The main components of PICO are software entities, called delegents
(intelligent delegates) and hardware entities, called camileuns (connected,
adaptive, mobile, intelligent, learned, efficient, ubiquitous nodes).

The novel features of PICO include: i) creation of mission-oriented dynamic
communities of software agents, ii) QoS management for just-in-time
communication and proactive collaboration among communities, and iii)
adaptability to dynamic environments through context- and
location-awareness.

As a pervasive computing paradigm, PICO has applications in many domains
such as telemedicine, the military, crisis management, and many day-to-day
activities. In this project the researchers focus on the design and development of PICO,
and investigate its applicability as a platform for distributed
collaborations. Through telemedicine applications, the researchers demonstrate the full
potential of PICO as an Internet enhancement framework that is not only
unique, simple, and versatile, but can also work with current and future
hardware/software tools. Specifically, the proposed tasks include: formal
specifications, design, and development of PICO architecture; requirements
analysis for telemedicine scenario; QoS and resource management; PICO
prototype development; and validation, performance evaluation and
benchmarking. PICO-enabled pervasive environments will revolutionize the way
the Internet is being used, enhance quality of life and promote user-centric
applications. The PICO project will result in the training of students in
pervasive computing, high quality masters and doctoral theses, and transfer
of technology to health care providers, professionals and other researchers.